Advanced Geostatistical Studies at the Centre de Geostatistique, Ecole des Mines de Paris

Advanced Geostatistical Studies at the Centre de Geostatistique, Ecole des Mines de Paris: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project aims at incorporating the disjunctive kriging into the variance reduction analysis (a geostatistical sampling scheme developed by the proposer). This expansion enables the program to identify the optimal sequence of sampling points for random variables with any distribution. It will be attempted to expand this algorithm to the time-space domain to be applicable to most physical processes in water science. The project is under the direction of Professor Shahrokh, Rouhani, School of Civil Engineering, Georgia Institute of Technology, Atlanta, GA 30332, U.S.A., and Professor Margaret Armstrong, Ecole Nationale Superieure des Mines de Paris, 35, rue Saint-Honore, 77305 Fontainebleau, France. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.